Clean Tech ATE: Advancing Technician Training in Clean Energy Technology

Shoreline Community College will upgrade its Clean Energy Technology curriculum and add long-term project-based learning experiences that develop higher levels of software and engineering skills. By developing a curriculum that addresses industry-identified needs and contains job-specific experiences, the revitalized program will help students develop a skillset that prepares them for high-skill technology jobs in the field of clean energy. Currently, there is no national title for a clean energy technologist. However, Shoreline's industry advisory board has identified a need for such a position and this project will develop skill standards that align with industry needs. The ultimate results of this project will be expediting Shoreline graduates' placement into energy management jobs, and contributing new materials to the ATE community.

This project's goals are: 1) to identify and define skill standards for a Clean Energy Technologist curriculum using Job Task Analysis, Job Market Survey, focus groups, gap analysis, and Developing a Curriculum (DACUM); 2) to develop authentic field experiences that simulate authentic job-related activities through project-based laboratory experiences; and 3) to increase regional awareness and interest in clean energy technology by engaging with high school STEM teachers. Project evaluation will provide an outside, independent perspective on the effectiveness of the project. Project activities, measurements, instruments, and outcomes will be shared with other departments and schools through presentations and professional development activities, and through the ATE community.